Lewis-Clark State College NSFNET Connection

4 From: dstaudt at NOTE 6/25/93 6:44PM (896 bytes: 17 ln) To: gclavon at nsf15 Subject: Lewis-Clark ------------------------------- Message Contents ------------------------------- ---------------------- Original Header Lines (From NOTE) ----------------------- X-Sender: [email] ------------------------------- Message Contents ------------------------------- ABSTRACT "Lewis-Clark State College NSFNET Connection" Lewis-Clark State College PI: Scott Cowdrey NCR-9312230 This project connects Lewis-Clark State College to NSFNET through NorthWestNet over a 56 kbps line. Faculty and students will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.